NSF Young Investigator

Technical abstract: Research will be conducted in the area of magnetic nanostructures, including ultrathin films, multilayers and granular structures. The effect of non-magnetic or polarized overlayers and doped interfaces on magnetic anisotropy, domain structure and magneto-transport properties of ultrathin films fabricated by sputtering and molecular beam epitaxi will be investigated. Further, the use of granular films for electrical injection, spin-dependent scattering and modification of the thin-film domain structure will be explored. Non-technical abstract: Research will be conducted to investigate the magnetic and electrical properties of materials comprised of nanometer- thick films and nanometer-size particles. Films and layered structures will be fabricated by ultra-high vacuum vapor deposition and evaporation. The role of the interfaces in determining the magnetic reversal and electron transport characteristics of the films will be explored. Potential applications of this research include magnetic recording, novel memory devices and magnetic field sensors.